PostDoctoral Research Fellowship

Shawna McMahon will travel to Miami University in Oxford, Ohio for four days. The purpose of the trip is to meet with Dr. Ann Hagerman, view her laboratory facilities and meet with her research group, give a departmental seminar, and work on a fellowship proposal for the Polar Programs Postdoctoral Fellowships deadline (October 18, 2010).